Model Theory in Algebra and Geometry

This is a wide ranging project on model theory in algebra, geometry, and other parts of mathematics organized around the key logical notion of definability. The PI will use techniques originally developed in more abstract settings of general first order theories, such as those of o-minimality and geometric stability theory, to analyze structures appearing in both pure and applied mathematics. This project will involve graduate students.

More specifically, Scanlon will study definability in expansions of valued fields by arithmetically meaningful sets, develop and employ the theory of definable quotient spaces in o-minimal and adelic contexts, investigate the stable field conjecture through special emphasis on the field of rational functions over the complex numbers, elucidate the structure of sets defined by underdetermined partial differential and difference-differential equations, and apply methods from model theoretic stability theory to problems of structural identifiability in practical models and on machine learning through an entropic approach to private learning.